CAREER: Research and Educational Initiatives Focusing on Polymers in Bioengineering: Nanoscale Patterning of Surfaces

The objective of this project is to develop new experimental techniques to produce controlled nanoscale patterns of biomolecules on polymer surfaces. The specific goals of this project are to: (1) fabricate nanoscale patterns on polymer films using atomic force microscopy (AMF), (2) use molecular dynamics simulations of polymer-AMF tip interactions to predict conditions for desired pattern formation, and (3) demonstrate the feasibility of fabricating a biosensor by immobilizing biomolecules on the nanoscale patterned surfaces.